Acquisition of an Ion Miller for Transmission Electron Microscopy

This award is for the purchase of an ion miller, capable of chemically-assisted ion-beam etching, to be used for the preparation of materials for Transmission Electron Microscopy (TEM). This ion miller is dedicated to research projects in materials engineering including: the surface control of atomic diffusion in III-V semiconductors; rapid solidification of ceramics; ion mixing of semiconductor layered structures; interface characterization of epitaxially grown superlattices; chemical synthesis of oxides; and guided wave optical devices and materials at the 1.3 micron wavelengths.